US-German Cooperative Research: Mesoscale Modeling of the Wintertime Atmospheric Circulation in the Greenland Area

The proposed collaboration with G¼nther Heinemann of the University of Bonn investigate the katabatic wind system over the ice sheet and the coastal regions of Greenland. Two mesoscale numerical models will be used to obtain climatologically relevant numerical simulations of a few months' duration. The model used by the Bonn group has a horizontal resolution of 25 or 50 kilometers; the one used by the U.S. group is the Pennsylvania State University/National Center for Atmospheric Research Mesoscale Model version 5, modified for ice sheet meteorology, with a resolution of 25 kilometers. Results of an observational study by the Bonn group will be used to verify the accuracy of the numerical simulations, and a comparison of modeling techniques and results will be used to improve model parametrizations and to lead to a clearer understanding of the role that Greenland's katabatic winds play in North Atlantic climate.